Research in Geometry and Topology

DMS-0203045
Mladen Bestvina

The project encompasses different aspects of geometry,
topology, and geometric group theory. The unifying theme
is the geometric and topological study of spaces with large
symmetry groups. Sometimes it is the group that arises first,
for example as a symmetry group of an algebraic object, and
then a space is constructed with symmetries reflecting this
group. This allows for geometric/topological methods to
be used in algebra. Another aspect of the project involves
finding hyperbolic structures on 3-dimensional manifolds.
The possibility that all (compact) spaces that locally look
like our ordinary 3-dimensional space are in fact geometric
objects was first conceived by W.P. Thurston and verified
in many cases. Yet another aspect involves Diophantine
geometry over groups. This is about a study of logical
statements that hold for a particular class of groups.
Surprisingly, as shown by the work of Z. Sela, topology
enters this study; for example, surfaces appear naturally
when one considers free groups.

More specifically, the topics of the project are: Singularities
of character varieties and topological dynamics on character
varieties, Explicit bounds in the compactness theorems for
spaces of discrete and faithful representations, Weak
hyperbolization conjecture and immersed surface laminations
in 3-manifolds, Constructions of Kaehler groups of low
cohomological dimension, Diophantine geometry over groups,
Finiteness properties of the Torelli group, Rigidity theorems
for Coxeter, Artin, and related groups.